Acquisition of Networked Imaging Cluster for Characterization, Analysis, and Visualization of Materials, Processes, and Engineering Structures

9512547 Ebeling The acquisition of a networked infrastructure of imaging equipment will enhance the potential and cohesiveness of interdisciplinary research activities being conducted in the College of Engineering and Architecture at North Dakota State University. The scope of the research includes materials, processes, engineered structures, and is aligned with and embodied in the mission of the College. Specific activities include material quantification and analysis, flow and combustion imaging, visualization and animation of dynamic systems, real- time imaging, and infrared imaging. The faculty group in the college is a distinctly multidisciplinary body engaged in interdisciplinary research. The equipment will be used to enhance interdisciplinary connectivity between researchers and projects, creating technological channels for sharing image data and processing routines relevant to visualization, characterization, and analysis. Through this imaging network, the convergence of traditional civil, mechanical, electrical, agricultural, industrial, construction, and architectural engineering research expertise will yield new findings in surface image evaluation, pictorial integration of design and analysis, motion, estimation, interferometry, intelligent processing, visualization of sound, displacement, thermal flow, and robotic control. ***